Modern Physics Laboratory Course Development Project

This is a project by the physics faculty of Bethany College to improve the quality of the senior- level Modern Physics Laboratory course through the acquisition of some new equipment. This project has enabled the department to change the emphasis of the course from a repetition of classic experiments in modern physics to the carrying out of more current, topical experiments in solid-state physics and modern optics. Students are able to gain hands-on experience investigating important microscopic physical phenomena using modern instrumentation and data acquisition equipment, which serves as a vital introduction to the world of modern physics research. The upgrade also enables students to verify and reinforce concepts discussed theoretically in several upper- level courses. In addition, their experiences serve as a basis for independent research projects carried out in the students' senior year. The equipment is also be used for these research projects.The lab course focusses on two active areas of physics research: solid state physics and modern optics. Equipment consists basically of three items: a cryogenic dewar, and an electromagnet for solid state studies, and an optical table with accessories for optical experiments. With existing equipment and further departmental acquisitions, these will allow a range of modern experiments and techniques to be explored.